Kinetics of Micellar and Microemulsion Systems

In this project, researchers will elucidate the kinetic aspects of micellar solutions and microemulsions using stopped-flow, temperature-jump and ultrasonic absorption techniques, and will correlate the results with equilibrium properties of these systems. Specifically, it is planned: to investigate the effect of solubilized oils on the kinetics and equilibrium properties of micellar solutions; to elucidate the influence of solubilization kinetics on the micellization process in micellar solutions; to measure kinetic properties of high concentration surfactant solutions to elucidate the effect of micelle-micelle interactions and the formation of anisotropic (birefringent) structures on relaxation processes in these systems; and to measure kinetic properties of microemulsions to delineate the mechanism of spontaneous uptake of water or oil by microemulsions. The rate of molecular exchange between bulk and the interface in microemulsions are determined using the ultrasonic technique. These measurements are used to identify various microstructures in single phase microemulsions.